Quasi-Linear Control

NSF Grant No. 0323953
QUASI-LINEAR CONTROL
PI: P. T. Kabamba, Co-PI: S. M. Meerkov
University of Michigan, Ann Arbor, MI 48109
Abstract
This grant provides funding for the development of theory and techniques for design of controllers in
feedback systems with linear plants and nonlinear sensors and actuators. This type of systems, referred
to as linear plant, nonlinear instrumentation (LPNI) systems, often appear in aerospace, automotive
and other applications, where plants can be linearized but the instrumentation is fundamentally
nonlinear due to cost, power, weight and other physical constraints. Within this project, all main
problems of control, i.e., disturbance rejection, reference tacking, conservation laws, etc., will be
addressed. The approach is based on the method of stochastic linearization, whereby the nonlinearities
of the instrumentation are replaced by static gains, calculated as functions of the variance of the
signals at their inputs. Unlike local (i.e., Jacobian) linearization, this method is semi-global in the
sense that it approximates the original system in arbitrarily large domains, defined by the signals
at the inputs of the nonlinearities. The set of techniques, to be derived using this approach, is
envisioned as extensions of corresponding linear control tools, augmented by nonlinear relationships
that account for instrumentation nonlinearities. This set of tools is referred to as quasi-linear control
theory (QLCT).
If successful, the results of this work will lead to improvements in design of controllers for a wide
range of practical LPNI. Today, such controllers are often designed using linear theory and then
time-consuming and expensive validations and incremental improvements, based on simulations, are
carried out. QLCT will, to a large extent, eliminate the necessity of extensive simulations, since
the optimal controllers will be designed directly taking into account instrumentation nonlinearities.
Initial application of these techniques for design of air-to-fuel ratio controllers at Ford Motor Co. is
planned.